Middle School Mathematics and Science at San Marcos (MS)2(SM)

"Middle School Mathematics and Science at California State University San Marcos" ((MS)2(SM)) is a summer camp initiative sponsored by California State University san Marcos in collaboration with the public school districts of Escondido, Oceanside, San Marcos, and Vista. This academically based enrichment program offers mathematics and science related activities to develop and sustain the interest of seventh through ninth grade African-American, Hispanic, Native-American, and Pan-Asian students in north San Diego County. Each summer the students attend a four- week institute taught by local science and mathematics teachers and college or university scientists and mathematicians. Students use calculators and computers as they develop the critical thinking and problem-solving skills that form the basis for scientific work. During the summer and academic year, participants take field trips to interact with scientists in a variety of work settings and are mentored by local college students and academic or industrial scientists. Project results will be disseminated through professional education networks, submission of articles to refereed journals, and presentations at local, state and national meetings.